High Performance Network Connections for Science and Engineering Research - HPNC: Enhancing Collaborative Research at a Predominantly Undergraduate Institution

The proposal plans to connect Marist to NYSERNet and then to the vBNS+ Network for the purpose of enabling the following research: Remote Microscopic Visualization in Support of Polar Microbial Research; Advanced Brain Imaging; Functional Imaging Archive; MRI Vertebrate Development Analysis; Addictions Research; Computational Study of Chemical Bonding Across the Entire Periodic Table; Finite and Infinite Group Theory; Pedagogical Research in Mathematics and Writing.